Core Support for the Activities of the Committee on Science,Engineering, and Public Policy

COSEPUP proposal for core support, Oct. 3, 1990 This two year award to the Committee on Science, Engineering, and Public Policy (COSEPUP) would support the Committee's core functions in performing a wide range of studies on major issues in science and technology policy by calling together panels of experts. Membership of COSEPUP and of its panels is of the highest quality. The proposal is the third of multi-year requests from COSEPUP to the National Science Foundation. COSEPUP has served for thirty years as a source of high level advice to science advisors and other senior government officials. The current proposal describes the intention of the Committee to continue to perform S&T policy studies at the broadest levels of analysis. While predicting which issues will be taken up by COSEPUP are difficult to predict, the following are offered as candidates: conflict of interest, science advice, government decision-making for research, technology and trade policy, and technology transfer and world security. COSEPUP studies make important contributions to the understanding of major S&T policy issues, including issues of central concern to NSF. This award will allow COSEPUP to continue this work.